Conference Proposal: Looking Back and Looking Forward: Increasing the Impact of Educational Research on Practice

The focus of the proposed conference is to carefully examine past and current research with an eye toward improving its impact on practice. This conference is designed to create concrete steps that could shape the nature and impact of mathematics education research for years to come. A diverse group of 50 participants will be invited to participate. Participants include 10 experienced K-12 educators whose perspectives will be used to anchor the conference in problems of practice. Other participants represent senior through more junior scholars who have demonstrated a commitment to addressing the disconnect between research and practice, along with technology experts to advise participants on capabilities and innovative uses of modern technologies for instruction, assessment and data management.

The overarching goal for the conference is to help the field of mathematics education think deeply about the most productive ways to answer the following questions: [1] Why hasn't past research had a more direct impact on practice? What can be learned from this historical analysis for future research? [2] What is a possible vision for research that would have a more direct impact on practice? What questions should be asked? What methods should be used? What concrete steps can be taken to launch the new research programs? [3] What are the implications of adopting new kinds of research programs? If they gain traction, how will such changes affect the broader education community and infrastructure, including preservice teacher education, teacher professional development, and the training of future researchers? How should the roles of researchers and teachers change? What incentive structures might motivate these changes? How will new programs of research interact with existing programs?

The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.